ROW: Structural Studies of Semiconductor Heterostructures using Transmission Electron Microscope

This Research Initiation Award is made under the National Science Foundation Research Opportunities for Women Program. The objective of the investigation is to study the structure of Group IV-VI semiconductor heterostructures and superlattices grown by molecular beam epitaxy. The emphasis is to relate the structure of these materials to their physical properties and potential device performance. The microstructure, crystallographic structure, and defect structure will be characterized using transmission electron microscopy and computer-assisted image simulation. The initial studies will be made on lead telluride- lead europium selenium telluride superlattices and heterostructures, but other IV-VI chemical systems will be investigated as the research progresses. The defects will be related to the electronic, magnetic and optical properties of the superlattices and heterostructures.